Moduli spaces for wildly ramified covers of curves

Project Summary for award DMS-0400461 of Pries

The theory of Galois covers of the complex projective line (Riemann
sphere) with given branch locus is well-understood; namely, one can
describe the inertia groups of such a cover with Riemann's Existence
Theorem and study families of such covers via their moduli spaces, which
are called Hurwitz spaces. These techniques extend to covers of the
projective line over an algebraically closed field k as long as the
ramification is tame. However, if the ramification is wild, i.e. if the
characteristic of the field k divides the order of some inertia group,
new phenomena occur which are much less understood. There are major open
problems involving the inertia groups and deformation theory of wildly
ramified covers. The PI proposes to study wildly ramified covers of curves, with the goal
of answering some of these problems; in particular, the PI expects to
compute the dimension of the deformation space of a cover in terms of its
ramification invariants. The PI also proposes to construct moduli spaces
for wildly ramified Galois covers of curves in characteristic p and to
investigate some of their properties.

Galois theory has high appeal to a broad audience. Several open problems
in this area can be explained to non-mathematicians and the topic connects
diverse areas of math. Galois theory arose classically as a means of
understanding symmetries of equations and of classifying extensions of the
rational numbers. Some of the early applications were that it is
impossible to trisect an angle, double the volume of a cube, or solve a
quintic equation. The PI proposes to develop a new course on Galois theory, to introduce
graduate students to the fundamental background and active research
problems of this topic. The PI would like to continue to lead research
programs for students; the program which the PI led in 2002 motivated
several students (including students from underrepresented groups) to
pursue graduate study in mathematics. An application of Galois theory in characteristic $p$ to data-transfer codes was recently discovered. These codes can be constructed using
curves of low degree which have many points defined over finite fields.
The PI would like to develop the connection between Galois theory and
coding theory further. Finally, the PI will continue collaborating with
mathematicians in Germany and New York and will disseminate the results
from this research through conferences and papers.